A computer science and mathematics scholarship program in predominantly minority and female program.

This project is designed to encourage low-income, academically talented students to
major in computer science and mathematics and to assist them in being successful in the
completion of their academic program. Through innovative community building
activities, the scholarship program is having a significant impact on the entire cohort of
students enrolled in Computer Science and Mathematics programs at NJCU. This cohort of
students are predominately female and disadvantaged minorities. New Jersey City
University is designated as a Hispanic Serving Institution (HSI) and a Minority Institution,
with a Hispanic enrollment of 30% and a total minority enrollment of 62%. The Program
consists of four components: (1)recruitment of talented, low-income students into
Computer Science, Pre-Engineering and Mathematics majors; (2) targeted academic
support initiatives, in addition to existing student support services; (3) structured
scholarship community activities; and, (4) internships and cooperative education work
experiences. The overall goals of the Project are the increase in enrollment, retention and
graduation rates of high-ability, low-income students in Computer Science,
Pre-Engineering and Mathematics baccalaureate degree programs. These goals and
objectives are being accomplished through existing programs, services and resources,
as well as through the addition of new academic support initiatives, and scholarship
community activities. This initiative represents a congruence between NJCU's mission
and the goals and purposes of the National Science Foundation's Computer Science,
Engineering and Mathematics Scholarship Program. The Project enables the creation
of a sustainable system for academics, student services and career planning supports
for our diverse student population, thereby increasing the technological capacity of our
nation's youth, and strengtheing and diversifying of our nation's workforce.